Rapid Product Formation in an Auxostat with Solid Nutrient

9405072 Bungay This project is on research to develop an economic process for the bioconversion of waste paper into acetate. This includes using a continuous cultivation technique in which the feeding rate of the solid substrate is regulated to match the consumption rate of a mixed anaerobic culture of microorganisms. The objective is a high rate continuous process which does not require a sterile environment. ***